US ATLAS Operations: Empowering US Universities for Discoveries at the Energy Frontier

The U.S. ATLAS Operations Program aims to provide U.S. university scientists with access to the unique
LHC science opportunities through a balanced program that encompasses: (1) the technical effort
associated with maintenance and operation of the U.S.-built detector subsystems, essential in achieving a
detailed understanding of the detector for physics results; (2) the maintenance and refinement of software,
computing and physics analysis support, critical in allowing scientists at U.S. universities to fully exploit
the physics potential of the LHC, in part through the establishment of university-based Tier 2 computing
centers in the U.S. and the expansion of the existing worldwide grid of resources; (3) an R&D program
for detector upgrades, to maximize the physics output during the long period of running expected for the
LHC and maintain U.S. intellectual leadership in accelerator-based particle physics; and (4) a strong
education and outreach program. The ATLAS collaboration, consisting of 151 institutes from 34
countries, is completing construction of the ATLAS detector at the Large Hadron Collider (LHC) at
CERN, and preparing for initial data taking in 2007. The 34 institutions of U.S. ATLAS, with the support
of NSF, have made major and unique contributions to the construction of the ATLAS detector, and
continue to provide critical support for the ATLAS computing and software program, and pre-operations
tasks as the detector is commissioned at CERN.

Intellectual Merit: The goal of the U.S. ATLAS Operations Program is to empower U.S. physicists to
address some of the most profound questions in particle physics today: what is the physical origin of
mass? Do supersymmetric particles exist and will they shed light on the nature of dark matter? Does
space-time have extra spatial dimensions? Answers to these questions would provide a major advance
toward completing a unified view of the particles in nature, the forces with which particles interact, and
their role in the past and future of our universe. This is a time when particle physics researchers have
unusually compelling indications that the step to be taken by the LHC, leading to collision energies far
beyond those available at existing facilities, will lead to especially important discoveries with
implications over a broad field of fundamental science. This program rests on the especially strong
scientific case for investigating the energy regime that will be accessed by the LHC, and benefits from a
program in which the international community is providing a major part of the investment. The bold
initiative of the NSF, in partnership with the DOE, to carry out a very significant portion of the
construction and operations of the ATLAS detector has opened up this opportunity for U.S. scientists.

Broader Impacts: This proposal will enhance the computing infrastructure for research, education and
beyond. The LHC computing requirements are driving a paradigm shift towards global computing with
potentially significant economic impacts, and our students will be at the forefront in using these new
technologies. NSF-ATLAS groups continue to expand their education and outreach programs, with a
particular focus on high school teachers and students (closely coordinated with QuarkNet), and on
outreach to under-represented populations. We plan on strengthening and expanding our outreach efforts
in the run-up to ATLAS data taking, including plans to help establish a computing center in Africa as part
of our expanding network of worldwide grid facilities. This site will provide a platform on which to
launch a program of Grid-based outreach in Africa. Starting in a few years the LHC will be the major
accelerator-based program in which to train the next generation of physicists. Support for R&D activities
will lay the groundwork for new technologies that might be adopted by other fields.